Conference: 17th International Conference on Mathematical and Numerical Aspects of Wave Propagation

The International Conference on Mathematical and Numerical Aspects of Wave Propagation is a biennial conference series is to bring together mathematicians, physicists, and engineers to discuss mathematical and computational techniques for challenging problems where wave propagation plays a central role. This series started in 1991 with the first event taking place in Strasbourg, France, and has consistently gathered around 200 participants, with excellent plenary speakers coming from all over the world. The success of the series for 35 years reflects the vitality and engagement of a vibrant research community. The program addresses timely topics aligned with current scientific challenges and rapidly evolving research directions. Contributed talks are selected through a peer-review process conducted by the scientific committee, and plenary speakers are selected by the organizing committee based on their research impact and contributions to the field. With an emphasis on cultivating the next generation of researchers, this project prioritizes funding for early-career participants to the 17th conference of the series, including graduate students, postdoctoral researchers, and junior faculty, lowering barriers to participation in this vibrant international research community for everyone everywhere in the country.

The conference is a leading forum for advancing theoretical and computational methods in wave phenomena across physics, engineering, and applied mathematics. It fosters rigorous mathematical analysis and innovative numerical techniques for modeling and simulating wave propagation in complex media. Topics covered in the 17th conference of the series include Numerical Methods for Time-Dependent Problems, Machine Learning for Waves, Numerical Methods for Time-Harmonic Problems, Reduced Order Models, Perfectly Matched Layers and Absorbing Boundary Conditions, Nonlinear Waves, Spectral Theory and Numerical Methods, High-Frequency Problems, Integral Equations and Boundary Element Methods, Domain Decomposition, Periodic Media, Homogenization and Asymptotic Analysis, and Inverse Problems. By uniting experts from acoustics, electromagnetics, geophysics, and quantum mechanics, it promotes interdisciplinary collaboration and the development of cutting-edge algorithms that address real-world challenges. With a long-standing tradition of shaping research directions, the series continues to disseminate high-impact results that bridge theory and application in wave-related problems. As a tradition, the proceedings of the conference document state-of-the-art research on topics covered during the event and are made publicly available. This award reflects NSF’s statutory mission and has been deemed worthy of support through evaluation using the Foundation’s intellectual merit and broader impacts review criteria. The website URL is: https://www.waves2026.org/.